Support of the Federal Construction Council

The program includes advisory studies in the role of federal engineers and architects, and metrication of federal construction. Information studies on the maintainability of federal facilities/infrastructure systems, total quality management and hazardous waste clean-up costs are to be carried out. //